Viscosity and Relaxation Approximations of Hyperbolic Systems

This research is concerned with several aspects of the theory of
weak solutions for hyperbolic systems, with the objective to develop
techniques for understanding the emergence of shock waves from
smooth approximate solutions in the small viscosity and small
relaxation-time limits. Such questions are intimately tied to the
mechanical issue of the passage from one thermomechanical theory
to another, and appear in models of continuum physics, kinetic theory,
and in the interface of the two. The goal is on the one hand to exploit
ideas from the kinetic theory of gases in developing theory for hyperbolic
systems, on the other hand in applying recent advances from the theory
of hyperbolic equations in studying the passage from microscopic theories
(of interacting particles) to mesoscopic theories (at the kinetic level)
to macroscopic (continuum) theories.

Shock waves are coherent structures that appear in situations involving
high speed supersonic flows. Their mathematical modeling involves
nonlinear hyperbolic partial differential equations. Understanding the
theory of these equations is very important in the design and implementation
of numerical algorithms for computing. The emphasis of this proposal is
in situations involving shock waves in transitions from rarefied to dense
gases. A typical application is air flow in high altitude supersonic flight,
for example during reentry of a space shuttle into the atmosphere.